Optical Materials: Properties and Applications

The advances in optical materials and technology play an important role in the future of undergraduate science and engineering programs. The Department of Physics and Applied Optics offers three courses in the area of optical materials and applications. Hands-on experience with modern optics and its related technology is essential in the motivation and training of students in applied optics program. Through this project, new experiments enable students to grow and to examine electro-optic and nonlinear crystals and organic polymer thin films. These laboratory experiments investigate three important aspects of optical materials: (1) crystal fabrication, (2) optical properties, and (3) applications. Some of these labs are structured while some are open-ended labs to allow for the students creativity. The major instruments provided through this project are (1) Neslab bath circulator and Diamond saw for crystal fabrication, (2) polarization microscope, scanning monochrometer, storage oscilloscope, and data acquisition system for characterization of materials, and (3) laser diode system, imaging system, high-speed detection system, and a HeNe laser for the proposed applied experiments. This equipment acquisition provides undergraduates skills and experience in crystal growth, concepts, and techniques that are utilized by researchers and industries.